Mechanism and Dynamics of Protein Interactions with Polymer Brushes

ID: MPS/DMR/BMAT(7623) 0804113 PI: Leckband, Deborah ORG: Illinois-Urbana/Champaign

Title: Mechanism and Dynamics of Protein Interactions with Polymer Brushes

INTELLECTUAL MERIT: The proposal aims to identify engineering design rules for controlling protein and cell interactions with biomaterials. A central and persistent problem confronting biomaterials design is the uncontrolled adsorption of proteins to material surfaces. There is currently no general consensus on how to design a protein-resistant coating. A major gap in current knowledge is the limited understanding of the basic mechanisms of protein adsorption to polymer interfaces in aqueous media. Absent this information, it is difficult to define engineering approaches to control specific behavior. This research plan will address this knowledge gap by using a combination of synthetic chemistry and complementary experimental approaches that probe the mechanisms by which proteins interact with grafted polymers. In Objective 1, polymer gradients will be used as high throughput screening platforms to identify polymer brush properties that support protein adsorption. In Objective 2, a combination of fluorescence techniques will quantify the diffusivity of adsorbed proteins as a function of the brush parameters. In Objective 3, neutron reflectivity measurements with deuterated proteins will determine where adsorbed proteins localize relative to the polymer brush. Finally, Objective 4 will quantify the magnitude and range of attractive and repulsive forces between proteins and polymers that are responsible for protein adsorption behavior. The work will help to develop an understanding of the interactions of proteins with polymer brushes and could advance the design and preparation of surfaces resistant to protein adsorption and biofouling.

BROADER IMPACTS: Success of this project will shed new and useful light on the mechanisms by which polymer brush coatings may protect surfaces from unwanted protein adsorption. With respect to broadening participation, the project will continue the PI's on-going efforts to involve students from underrepresented groups in science and engineering in the research endeavor. These efforts will include inclusion of females and underrepresented minorities in graduate level research and participation in the Summer Research Opportunity Program that provides opportunities for minority undergraduate students to participate in research.